CEDAR: Establish a Middle Atmospheric Radar in Sondre Stromfjord, Greenland

The project has the goal of finding a site in the vicinity of Sondre Stromfjord, Greenland, for a partial reflections drifts radar. The specific costs of the site preparation required before installation of the radar will be determined, and estimates of the month-to-month operating costs will also be obtained. In addition, the various instrumentation options will be assessed.***//